Development of an Object-Oriented Approach for Managing Genomic Mapping Data

The development of more efficient methods for storing genome- related information into computer systems and software applications for data analysis are important aspects of the Human Genome initiative and of other genome projects currently underway. The need to develop improved computer-assisted information repositories is obvious; genome-related research is producing massive amounts of data that cannot be adequately modelled using currently relational database technologies. This project will test the hypothesis that the object-oriented approach outperforms the relational approach for modelling genome- related data. In addition, this project will test whether the object-oriented approach provides a better interface development environment that the relational approach. E. coli genome data will be used to develop an object-oriented prototype database that contains genetic maps, physical maps, DNA sequences, and transposon insertion sites. For prototyping, the most recent version of a second generation object-oriented database, ONTOS from Ontologic, Inc., will be used.